Identification and Active Control of Structures Under Earthquake Loadings

This project consists of two research parts: (1) verification and utilization as a proposed controller of a new system identification (SI) technique, and (2) study of two active control schemes, i.e., the modified Luenberger pole placement and neural control algorithms, for the active control of structures against earthquakes. The main objective is to investigate the feasibility and application of these two control schemes in protection of civil engineering structures under seismic conditions. A 10-story apartment building in San Jose, California whose 13 seismic instruments have recorded many earthquake response data will be analyzed to validate a system identification technique which is capable of identifying the structural dynamic model from the measured response records and without knowing the seismic input. This SI technique will be incorporated into the formulation of two control schemes, whose feasibility and effectiveness will then be studied. This project contains an important component of Research Opportunity Awards (ROA) and provides collaborative support for a faculty researcher from a historically minority institution.